Possibilities and Limitations on Enhancement of Heat Conduction in Fluids by Oscillation

This research is aimed at testing a novel concept of transferring heat between a hot zone and a cold zone. The high rates of heat transfer occur due to oscillation of a fluid which connects the two zones. As of now, the concept is more or less theoretical. The focus of the research is to test the concept by means of definitive experiments.